New High-Resolution Semi-Discrete Central Schemes: Derivation, Applications and Local Error Analysis

Central schemes may serve as universal finite-difference methods
for numerically solving hyperbolic conservation laws, Hamilton-Jacobi
equations and closely related convection-diffusion equations. Such
schemes are not tied to the specific eigen-structure of the problem,
and hence can be implemented in a straightforward manner as black-box
solvers for a wide variety of nonlinear equations governing the
spontaneous evolution of large gradient phenomena. The first-order
Lax-Friedrichs scheme is the forerunner for suchcentral schemes. The
second-order Nessyahu-Tadmor scheme offers high resolution while
retaining the simplicity of Riemann-solver-free approach. In the
convective regime the improved resolution of the Nessyahu-Tadmor
scheme and its generalizations is achieved by using high-order
piecewise polynomial reconstructions and high-order quadrature
formulas for computing the flux integrals. At the same time, this
family of staggered central schemes suffers from excessive
numerical viscosity when a sufficiently small time step is enforced,
e.g., due to the presence of (degenerate) diffusive term.
Recently Kurganov and Tadmor introduced a new family of central
schemes, which retain the simplicity of staggered central schemes,
yet they enjoy a smaller numerical viscosity. In particular, these
schemes admit a simple semi-discrete formulation. This project aims
to develop new, minimally dissipative fully- and semi-discrete central
schemes for conservation laws. The main ideas behind the construction
of these new schemes is the use of more precise information of the local
propagation speed, and realizing the (non-smooth part of the) approximate
solution in terms of its cell averages integrated over the nonsymmetric
Riemann fans of varying size.

Hyperbolic conservation laws, Hamilton-Jacobi equations and convection-
diffusion equations are of great practical importance. They govern a
variety of physical phenomena that appear in fluid mechanics, gas
dynamics, magnetohydrodynamics, astrophysics, groundwater flow,
meteorology, semiconductors, reactive flows, two-phase flow in oil
reservoirs, non-Newtonian flows, front propagation and several other
areas. Financial modeling, traffic flow, differential games, optimal
control and image enhancement are among the most recent applications
of the above models.Genuinely multidimensional high-resolution
semi-discrete central schemes provide a rather simple and universal
method for solving these problems. At the same time, the computational
efficiency of central schemes is extremely high. For example, recent
numerical experiments in three-dimensional magnetohydrodynamics
demonstrate that using central schemes allows to achieve the desired
resolution about 25 times faster in comparison with other methods. In
general, the advantage of the new semi-discrete central schemes over
alternative upwind methods is particularly amplified when they are used
to solve complicated multidimensional systems arising in practice.
The proposed schemes will be also applied to such important problems
as compressible and incompressible Euler and Navier-Stokes equations,
multi-phase model of geometric optics, multicomponent flow and
compressible bubbles models, moving boundaries problems, shock
reflection problem for the unsteady transonic small disturbance
equation and others.